Decentralized Traffic Engineering in the Internet: A Sliding Mode Approach

This project proposes to perform fundamental research on the development of classes of
distributed control laws and algorithms for optimal traffic engineering in a multiple-
service enabled Internet. Having its basis on recent results on the use of Sliding Mode
theory in the context of control of computer networks, the proposed research aims at
developing decentralized algorithms and tools for optimal traffic engineering in the
presence of both multiple paths and multiple classes of service. The theoretical
underpinnings of various traffic engineering algorithms will be developed. It will also
provide solutions, implementation guidelines to practitioners in the field and also
valuable input to standardization bodies on the effectiveness of various traffic
engineering approaches.